Enhancement of Computer Numerical Control Laboratory to an Integrated Flexible Machining Cell and Metrology Laboratory

This laboratory improvement project funds the acquisition of CNC vertical machining center with tool changing capability and metrology equipment to enhance the Computer Numerical Control Laboratory to an Integrated Flexible Machining Cell and Metrology Laboratory. New CNC 3-D part programming projects and metrology laboratory experiments are being developed to expose mechanical engineering students and engineering management students taking the course to advanced technologies, programming, operation, simulation, accuracy assessment, and control of flexible machining cell and the interrelation among them. The new equipment consists of a 3-axis CNC vertical machining center, a pentium 60 computer and accessories, telescopic ball bar, and metrology interferometer system for accuracy assessment of machine tools, CMMs, and machined workpiece.